Infrared Studies of Molecular Ions, Spectroscopy and Dynamics (Physics)

The group at the University of Chicago, under Professor T. Oka, has pioneered the study of molecular ions. They have used the latest spectroscopic techniques to study the details of reactive fragments that can play key roles in reactions, both in the laboratory and in the regions between stars. This work has yielded much information on the properties of a variety of important ions, and in turn has led to the detection of these same ions in interstellar space. This group will continue these important and definitive studies, and will develop new techniques of ion formation and spectroscopy.